Cognitive and Social Values in Computer-Aided Engineering Design

One of the central problems in studies of science, technology and society concerns the respective roles and relationships of cognitive and social values in scientific and engineering thinking and decisionmaking. Cognitive values are those we tend to think of as "scientific" or "objective"; they concern standards of evidence or proof, for example. Social values also play a role in determining successful scientific and, perhaps especially, engineering efforts. Judgments of the marketplace, of aesthetics, of suitability, hierarchy or fairness, for instance, can play critical roles in decisions about the directions of engineering research and development, and the use of engineering products or processes. Indeed, it is possible that social values have a necessary role in standards of evidence, making a clear distinction between social and cognitive values difficult to draw. This award, to an anthropologist and assistant professor of technology studies at the Center for the Study of Science in Society at Virginia Polytechnic Institute, will enable him to pursue research on the relationships between cognitive and social values in decisions to develop and use computer-aided engineering design (CAD). The overall objective is to explore how the cultural identities of engineers, which include both cognitive and social standrads, shape engineering decisions. The project has two components. The learning component involves (1) enrolling in a sequence of two senior- level courses in CAD and (2) assisting his host specialist, the director of the CAD/CAM Laboratory at VPI, in an engineering design project applying finite element analysis methods to an industry problem. The research component involves (1) investigating the historical development of CAD systems in industry and at universities, to identify the roles of cognitive and social value judgments, and (2) conducting a participant observation study of the CAD design project to investigate the roles of these judgments in a current negotiation of a competent design solution. Results of the project will be disseminated through two published papers, curriculum changes to two courses, and a series of public presentations before engineering and social science/humanities audiences. This project addresses an important issue. The applicant is well qualified. The host specialist and other accessible experts are very well qualified and will be able to provide the necessary guidance; collaborative efforts are likely to continue beyond the period of this award. The project is designed well and plans for the development and dissemination of results are appropriate. University support is very good. An award in the amount of $38,000 is therefore recommended.